EMSW21-RTG: Research Training Group in Interactions of Representation Theory, Geometry and Combinatorics

Abstract for RTG award DMS-0354321 of Haiman

The purpose of this project is to bring together U.C. Berkeley's
research faculty in the areas of Representation Theory, Geometry and
Combinatorics, along with a group of postdoctoral associates and
graduate students, in order to promote collaborative research and the
training of young people for future work. The three branches of
mathematics addressed by this project are connected in profoundly
important ways. In every one of these areas, many of the most
exciting current research advances involve the interconnections
between them, so that serious study of any of them requires strong
knowledge of the other two. A central goal of the project is to
provide an environment in which postdocs and graduate students are
given the time, opportunity and collaborative atmosphere needed to
master a full range of techniques in all three areas. The project
will establish two new seminars, to meet throughout the academic year,
one concentrating on instruction in specialized topics not usually
found in standard courses, and the other a joint seminar on current
research. The project will also hold an annual week-long intensive
summer workshop, featuring series of 5--6 lectures on advanced topics
by distinguished outside visitors and U.C. faculty members, intended
for a graduate student to postdoctoral level audience. We will
welcome and facilitate participation by young researchers from other
institutions.

Exciting recent mathematical developments lie at the intersection of
representation theory, geometry and combinatorics, with much more to
be done in the future. The faculty members forming the core of the
research group (Profs. Haiman, Reshetikhin, Borcherds, Frenkel,
Givental, Knutson, Serganova and Wolf) have extensive overlapping
interests, each using techniques from all three areas in his or her
own work. Specific research interests common to multiple members of
the group include topics in quantum field theory; representation
theory of infinite-dimensional Lie algebras; quantum groups and
canonical bases; Gromov-Witten invariants and mirror symmetry; and
geometry and combinatorics of Schubert varieties and flag manifolds.
The activities of the project are designed to foster research
collaboration and above all to equip young mathematicians in training
with the broad range of intellectual tools needed to reach the
frontiers of research on such topics such as those mentioned.